Doctoral Dissertation Research in Geography and Regional Science

The distribution, ecology, and taxonomic variations of contemporary patterns of ornamental and ritual plant species are the observable end product of no longer observable and often poorly documented prehistoric and historic processes. These patterns provide a solid framework for reconstructing the past and for interpreting current human-environmental relationships. Although ornamental and ritual flora have often been noted as important elements in the cultures of modern Mexico and pre-Columbian Mesoamerica, they have not been studied extensively. This doctoral dissertation research project will focus on the complex of culturally significant flora in four ecologically and economically distinct Yucatecan Mayan communities. Among the plants to be studied are Yucatecan species, pre-Columbian domesticates, colonial-era introductions and species that have been incorporated more recently. The researcher will survey housegardens to determine species and cultivars present, observe ceremonies to determine plant species used, and interview gardeners and ceremonial participants. This biogeographical study will contribute to a fuller understanding of Mayan ethnobotany and culture. In addition, it will address more general questions of plant domestication and human ecology. The project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.